Aerogeophysical Project Workshop

This grant provides travel support for U.S. scientists to attend a workshop on antarctic airborne geophysical studies convened by the Division of Polar Programs in Buenos Aires. This international workshop has several purposes. It will afford an opportunity primarily to present the results of the just completed three year aerogeophysics project staged from Chile and Argentina, but also to formulate key questions concerning antarctic geophysical processes, enumerate other available support facilities, and consider future internationally cooperative experiments to help gain greater insight into antarctic marine geophysical processes. The aerogeophysics project was directed by scientists from Columbia University, with aircraft support provided by the Naval Research Laboratory. Scientific expertise and local support was provided by the Instituto Antartico Argentino, the Servicio de Hidrografia Naval Argentina, The Servicio Nacional de Geologia y Mineria de Chile, and INACH, the Chilean Antarctic Institute. The workshop will produce a synthesis of ideas that could form the basis for future multidisciplinary studies on an international level, and produce significant advances in our conceptual view of tectonic plate evolution in the Antarctic.